Symposium on Thin Films: Stresses and Mechanical Properties

This award provides group travel support to attend the symposium on "Thin Films: Stresses and Mechanical Properties" at the Materials Research Society Meeting to be held in Boston, December 2-6, 1991.